Demonstration Modules for Applications of Biotechnology for High Schools

The research proposed is a program to administer and manage a program in modern biotechnology with the commercial result of demonstration modules for use in high school classes. The effort includes summer workshops for high school teachers, university faculty and industry experts. In later sessions, students will utilize demonstration modules tested and refined in classroom settings.